Graduate Student Support for Attosecond-2009

Support is being provided for domestic graduate students to attend the 2nd International Conference on Attosecond Physics (Atto-2009). This conference is being held on the campus of Kansas State University in Manhattan, Kansas, beginning on July 28, 2009, and ending on August 1, 2009.

Atto-2009 is organized around the following topics:
Attosecond generation
High-order harmonic generation
Attosecond physics
Ultrafast dynamics and imaging of molecules
Laser-plasma interaction and super intense lasers
Free-electron x-ray lasers
Coherent control
High-power ultrafast lasers
Carrier-envelope phase-controlled ultrafast lasers
Ultrafast dynamics in solids, surfaces and clusters